Mathematical Sciences: Laplacians and Their Heat Flows in Riemannian Geometry

9403857 Rosenberg The scope of research entails the study of heat flow techniques relative to Laplace type operators on Riemannian manifolds. Some elements of stochastic differential geometry and brownian motion will also be pursued along with the geometry of the zeta function. Part of the scope involves projects with undergraduates. The research has potential applications to stochastic processes and mathematical physics. ***